Developing New Approaches to Computer Support for Mathematics Instruction

Two computer laboratories are being used to support mathematics instruction by implementing a wide variety of computer tools designed to make mathematics learning more of a "hands on" exploration of mathematics, much like a natural science laboratory. While Mathematica will be one of the tools employed, it will be used primarily as a calculation engine designed to serve other, more course specific computer tools developed by the faculty and tailored to the needs of the students. The NeXTSTEP development environment is used to create computer-based